RUI: Facilities Development at Shannon Point Marine Center in Support of Coastal/Estuarine Processes Research

Western Washington University has established the Shannon Point Marine Center (SPMC) as the focal point for new initiatives in research and education in marine science. SPMC is strategically located, providing direct access to a wide variety of marine and estuarine habitats, including protected wetlands, macrophytes, estuarine marshes, and rocky intertidal zones. The facilities of SPMC provide opportunities for resident and visiting scientists to implement research on local estuarine processes, such as productivity of various local watersheds, nutrient cycling and regeneration, microbial ecology, and benthic metabolism; on environmental impacts of petroleum refining; and on fish and invertebrate life histories. This project provides partial funding to renovate existing presently under-utilized space for use as an analytical laboratory to provide a critical link between field measurement and real time laboratory analysis. The project is essential to SPMC's developing focus on process-oriented research on marine and estuarine systems of the northern Puget Sound basin and its continuing effort to accommodate the needs of visiting scientists. The laboratory will also serve as a core facility for undergraduate research and training.